Dynamics of a Pelagically Spawning Coral Reef Fish

This project explores a new hypothesis for explaining the patterns of mating in pelagically-spawning marine fish. The hypothesis states that spawning sites and times are selected to improve fertilization rates. In general, spawning periods represent critical times for production and vulnerable times for harvesting. It is important to know more about their causal basis. In the bluehead wrasse, Thalassoma bifasciatu, Dr. Petersen and colleagues found that the timing of mating varies dramatically between local populations, the mean fertilization rates were surprisingly low and appeared to be influenced by turbulence and location on the reef, and the number of sperm released by males correlated significantly with the size and fecundity of the female with whom they are mating. This project will conduct three interrelated investigations: (1) determine timing of mating by examining the relationships between several measures of water movement and the time of spawning on reefs with different schedules; (2) locate mating sites that facilitate fertilization, egg transport off the reef, or both; and (3) investigate fertilization dynamics by examining how the number of eggs fertilized varies with the number of sperm released by the male, which generates specific predictions of how males should allocate sperm among spawns.